MRI: Acquisition of a Variable Pressure SEM to Enable Research, Education, and Services at Carnegie Museum of Natural History

This three-year project provides a scanning electron microscope (SEM) for use by research scientists and public educators at Carnegie Museum of Natural History (CMNH). This instrument improves the quality and speed of microscopic observations, expanding the kinds of research possible at CMNH. The instrument permits non-destructive analysis of microscopic features of specimens in the museum’s vast collections. Scientific goals include: 1) implementing an SEM with x-ray capability for studying specimens; 2) enabling staff research programs in archaeology, mammalogy, vertebrate paleontology, entomology, mineralogy, and other disciplines; 3) expanding SEM use to improve research and scientific services by Research Associates, visiting researchers, student investigators, and specimen borrowers.

This project integrates research and educational programming for public visitors through research-intensive learning experiences in a museum setting. It provides hands-on opportunities for visitors to use the SEM to observe real objects. These memorable experiences promote understanding and appreciation of museum-based research by students at all levels and the general public using museum collections, exhibits, classrooms, and events. The SEM will be used within educational programs already successful at CMNH, involving technological applications for learning: special projection spaces (Earth Theater); research integration (Biotechnology Laboratory); curricula for student classes in other states via Internet (Distance Learning).